Unidata 2008: Shaping the Future of Data Use in the Geosciences

This proposal seeks funding to build on the strengths and successes of the Unidata Program Center with an enhanced focus on the application of cutting-edge technologies and tools for a broad community of scientists and educators, with the overarching goal of transforming geoscience's education and research. The proposed endeavors emphasize providing data and a rich set of tools, services, and collaborative activities that will enable the community to advance scientific exploration and learning. The goals, objectives, and activities in this proposal are based on national science, technology, and education trends, as well as community concerns and needs.